Engineering Research Equipment: High Vacuum Hot Press for Synthesis of Dense Ceramics, Ceramic/Metal Composites and Diffusion Bonding

9622146 Reimanis This Research Equipment Grant will allow the Center for Advanced Ceramics at the Colorado School of Mines to purchase a high vacuum hot press which is essential for several research projects in Ceramic Engineering and in Materials Science. This equipment is clearly needed by the investigator to develop fully-dense ceramics for research studies on ceramics and composites. The research studies on ceramic synthesis and metal/ceramic functionally graded materials are important and novel research topics. PI has a strong record of quality research and has demonstrated competence in his studies of the failure of ceramics. In addition to research studies the equipment will be available to undergraduate students for educational purposes. The institutional cost-share of 50% of the project costs will come from a State of Colorado capital equipment grant for the renovation and construction of the Metallurgical and Materials Engineering building at the Colorado school of Mines. ***